Postdoctoral Fellowship: MSPRF: Tambara Functors and Stable Homotopy Theory

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Noah Wisdom is “Tambara Functors and Stable Homotopy Theory”. The host institution for the fellowship is Stockholm University and the sponsoring scientist is Gregory Arone.